The Geochemistry of Mauna Loan Volcanism and Its ConjecturalRole in Kilauean Volcanism

This project will continue detailed geochemical and petrological studies of Mauna Loan lavas on the island of Hawaii. Previous work has produced a comprehensive model for Mauna Loa's magmatic system, showing that it is markedly different from that of neighboring Kilauea volcano. This project will build on that work, testing these ideas and developing them further through study of specific problems. These will include: a) detailed geochemical and mineralogical studies of picritic lavas and the extensive 1859 flow because it is thought these could contain information on the nature of the parental magmas that supply the volcano; b: study the long-term secular variation in lava composition, emphasizing trace element and isotopic chemistry in order to evaluate possible changes in source composition ov the last 30,000 years; c) provide detailed glass and mineral chemistry for all major historic eruptions, integrating this with exisiting geochemical data in order to test and refine the magmatic model; d0 through geochemical analysis of stratigraphically controlled prehistoric Kilauean lavas, follow up on a recent discovery which suggests that, previous geochemical evidence to the contrary, Mauna Loa and Kilauea may be magmatically interrelated.